Conference on Development and Plasticity of the Vertebrate Spinal Cord: Progress & Future Directions; Ohio State University; July 19-21, 1989

This symposium/workshop conference brings together investigators studying various aspects of spinal cord development and reorganization in vertebrates. The major focus of workshop is on normal development, but attempts will be made to relate normal development to events following spinal cord injury in both adult and developing animals. In recent years significant progress has been made in our understanding of spinal cord neurons and differentiation, pathway formation, synaptogenesis and the ontogeny of spinal cord neurons and glia have all been the subjects of recent investigation. By assembling a group of investigators who work on different problems in different species and who use a variety of classical and modern biological approaches, we hope to further our understanding of normal development and to identify directions for future research that may lead to recovery of function following spinal cord injury in humans.